Contemporary Data Acquisition Methods in Science Laboratories

Pembroke State University will purchase microcomputers, associated computer peripherals, and physics apparatus. This equipment will be used to improve instruction in the introductory physical science laboratory course. The students, many of whom are prospective teachers, will learn the fundamentals of computer assisted data acquisition and analysis. Pembroke State University will match the NSF grant with an equal amount of funds.